Travel: NSF Student Travel Grant for 2023 IEEE International Symposium on Workload Characterization (IISWC)

The purpose of this proposal is to request travel support funds that will help undergraduate and graduate students from US-based institutions to attend and participate in the 2023 IEEE International Symposium on Workload Characterization (IISWC). The conference will be held in October 2023 in Ghent, Belgium.. IISWC is the premier forum for understanding and characterization of workloads that run on all types of computing systems. Topics of interest include but are not limited to characterization of applications in domains; emerging workloads and architectures; implications of workloads in design issues; benchmark creation and evaluation; characterization of OS/VMM, middleware and library behavior; measurement tools and techniques.

The award is to provide travel support for around 20 U.S.-based students attending this event. The selection process will give priority to US citizens and permanent residents, with special consideration to members of under-represented groups and participants from universities that do not have a strong tradition in the topical areas covered in the conference, in order to expand the scope of the conference participation. Students attending this workshop will benefit from the rich interactions and networking/mentoring opportunities afforded by their presence at the event.